Mathematical Sciencs REU Site: Problems in Analysis, Probability, and Finite Mathematics

This REU site award provides support for six undergraduate researchers in mathematics each summer for two years. The research at this site will be on topics in analysis, probability, and finite mathematics. The program will run for ten weeks. Participants will be expected to provide regular reports on their work at informal meetings which will include all of the participants and appropriate faculty members.